Mathematics of Network Coding

Zeger
DMS-1009954

The project develops foundations for the recently booming
applied mathematics field of network coding. Network coding
offers the promise of improved performance over traditional
network routing techniques used in practical engineering
applications. Emphasis is placed on the fundamental theory of
communication in networks that allow coding in addition to
routing. Applications include improved throughput in packet
networks and power savings in wireless ad hoc networks. The work
exploits the diverse mathematical, engineering, and computer
science background from the investigator's previous work and
involves mathematical analysis, algorithm design, and computer
simulation. The main topic areas investigated are: the role of
alphabet size and error correcting codes in network coding,
techniques for computing or bounding network capacities,
determining the scalar or vector solvability of networks,
theoretically achievable rates under a limitation of the number
of network nodes that can perform coding, and bi-directional
networks.

This project has applications to practical engineering
problems involving packet switched networks, such as sensor
networks, military battlefield networks, and local area networks.
The most prominent example is the Internet, which is used on a
daily basis by billions of people for sending email, downloading
images and video, transferring data, and many other applications.
This project studies the theoretical foundations of how
information can be sent across such networks using mathematical
combinations of data rather than just routing of data.
Specifically, the project studies the fundamental limits of data
transmission, the best methods to transmit such data, and
variations on the types of networks used. The project includes
graduate student participation as well as some undergraduate and
high school student contributions, with emphasis on the
interconnection between mathematics, engineering, and computer
science.